Product Enhancement by Gas Stripping in Fermentation

This work intends to increase the efficiency of ethanol production via fermentation using thermophilic microbes to operate at higher temperatures in conjunction with in situ gas stripping. It is suggested that this technology will alleviate ethanol toxicity to the micro-organisms in the substrate resulting in higher productivity and reduced cost of product concentrate and purification. The proposed investigation has the following three specific tasks: (1) To obtain quantitative information pertaining to the gas stripping in ethanol fermentation (GSEF). (2) To investigate the stability criteria of the steady state multiplicity in the GSEF system analytically and experimentally. (3) To develop a theory of the gas stripping in bioprocess systems for design and scale-up, so that improvements of the productivity can be achieved.